NSF-CCF-EMT Workshop on Cyberinfrastructure (CI)-based Emerging Models and Petascale Computing for Nanoscience and Nanotechnology

This proposal is to organize a national workshop to bring together research and development communities of nanotechnology and high performance computing to discuss challenge problems in multi-scale modeling and large-scale simulations for nanotechnology.
The proposed education components influence the public education systems in science and technology through Virtual School of Science and Engineering by NSF-OCI sponsored Great Lakes Consortium Project and HPC University project initiated by NSF TeraGrid.